NYI: A System Architecture for High Performance Networking

Experimental research is performed to explore and develop sophisticated compiler algorithms and novel computer architectures that meet the application-to-network needs of such data-intensive applications as video-on-demand and real-time image retrieval.